NSF Margins Office Support

The MARGINS program seeks to understand the complex interplay of processes that govern continental margin evolution globally, particularly targeting multidisciplinary research programs involving field experiments, numerical simulations, and laboratory analyses. Support is provided to continue the MARGINS coordinating office, which will be transferred from the University of Hawaii to the Lamont Doherty Earth Observatory. The coordinating office will help focus and implement efforts of investigators on specific initiatives and geographic areas identified in the MARGINS Program Science Plan, help disseminate information on program activities and results to a large and diverse community, and coordinate MARGINS activities with other appropriate national and international activities.